CRCM: Comprehensive Regional Center for Minorities in Mississippi

HRD-9353219 Mohamed, Abdul K. Jackson State University Jackson, MS "Comprehensive Regional Center for Minorities in Mississippi" One of the most important goals of the nation's education system is to produce students who are first in the World in science and mathematics achievement by the 2000. Recent reports indicate that the gap between United States and other industrialized nations in these areas is abysmally widening. The gravity of the problem is even more conspicuous in the case of minority students, where they are significantly under-represented in science, mathematics and engineering. Minority students must be provided, from the time each enters school, and intellectually stimulating and academically enriched learning environment. The Mississippi Quality Education for Minorities (QEM) Network Alliance is a partnership among a plethora of colleges/universities, school districts, community organizations and other constituencies which will address the need to increase and enhance educational opportunities for minority children and youth in Mississippi. The Alliance is the only organization of its kind in the state and given the successful experiences of programs of similar kind in the past it will be highly successful in implementing this project. This project has five components: (i) Pre-college Outreach (Summer residential academies, Saturday academies and Teacher Enhancement); (ii) Special Support Services: (iii) Family Math-Science; (iv) Dissemination; and (v) Evaluation. The Pre-college component exposes and provides middle school students with challenging approaches to science, mathematics, communication skills and computer science learning. Students in grades 6-8 will participate in the residential summer academy each year. Other activities in the pre-college component include: role-modeling, field trips, demonstrations by college faculty, cross-tutoring by college students, science fairs, parental involvement, etc. Special Support Services component provides family involvement and Business/Industry/Government interface with the pre-college component. Linkages, additional networks and partnerships with major agencies and stakeholders in education will be encourage to leverage support and resources. The teacher enhancement component will target middle school teachers. The primary goal is to strengthen their content knowledge and teaching skills to enable them to develop and implement a plan for improving math and science instruction at their school site. The achievements of this project will be disseminated throughout the state and the nation. The strength of this proposal is native to its design which has been worked out by building from past experiences. This project will impact the whole state of Mississippi and may become the vehicle for revitalizing pre-college education in science and mathematics in the state of Mississippi. Expected outcomes include; (i) Greater interest in careers related to Math and Science (ii) High achievement in Math and Science courses; (iii) Increased enrollment in Math and Science courses; (iv) Increased enrollment in Pre-algebra; Algebra and Geometry; (v) More schools offering Pre-algebra, Algebra and Geometry; (vi) Increased number of teachers trained in these subjects; and (vii) Increased time devoted to Math and Science in the classroom.